Acquisition of a 400 MHz Superconducting Nuclear Magnetic Resonance Spectrometer

The School of Chemical Sciences (SES) at the University of Georgia (UGA) requests support to obtain a nuclear magnetic resonance spectrometer. The research programs of six members of the SCS are described here. These programs involve the following areas of Chemistry and Biochemistry: 1. Characterization of new metalloproteins involved in iron metabolism and electron transfer, 2. Structural elucidation of complex alkaloids and other natural products, 3. Conformational analysis of small peptides, 4. The study of the physical and chemical mechanisms of enzyme catalyzed reactions. These programs are now frustrated by the lack of readily accessible modern NMR instrumentation at the University of Georgia. The NMR spectrometer will be located along with other multi-user analytical instrumentation in a modern centralized "Instrument Facility" maintained by the SCS.